An Acquisition of a Multi-Collector-Inductively Coupled Plasma-Mass Spectrometer

0079943
Hanan
This Major Research Instrumentation award to San Diego State University provides funds for acquisition of a multi-collector inductively coupled plasma-mass spectrometer for earth, ocean and environmental sciences research. It will be used for a wide variety of projects, including mantle geochemistry, U-Pb geochemistry, bio-geochemistry, and research into laser wave-mixing techniques, and it will include both undergraduate and graduate students in research and training. It will be managed as a recharge facility, available to many researchers and students at SDSU, other California State University campuses, and to collaborators at UCSD and elsewhere. The project was reviewed and supported collaboratively by the Divisions of Ocean Sciences and Earth Sciences at NSF. A portion of the support was provided by the Ocean Drilling Program. San Diego State University will provide cost-share support for 50% of total project costs.
***